Tracking the Seasonal Contribution of Algal Fatty Acids to the Arctic Marine System

The Bering Sea has one of the highest seasonal sea ice regimes in the Arctic and one of the highest rates of observed change. Cascading effects of seasonal changes in sea ice are expected to influence primary production and propagate through marine ecosystems in the Arctic. Funds are provided to support a transformative approach to better track the complex seasonal interdependencies between arctic marine primary production and arctic marine food web components in the Bering Sea. The Principal Investigators will track the seasonal, proportional contributions of specific biomarkers derived from the two main primary producers, sea ice algae and open ocean phytoplankton, into higher trophic levels (sympagic, pelagic and benthic invertebrates and ice seals) in the Bering Sea. The overall goal of this proposal relates to providing an exceptional level of ecological detail by: 1) tracing the seasonal inputs of specific fatty acid biomarkers deriving from sea ice alga and open ocean phytoplankton through the marine food web using sophisticated fatty acid profiling and novel compound-specific stable isotope analyses (CSIA); 2) tracing the seasonal (spring and summer) changes in the proportions of these biomarkers in sympagic, pelagic and benthic arctic marine invertebrates; 3) which are an important subsistence resource to Alaskan Native communities in the region. Their detailed and seasonal perspective will contribute to ongoing food web studies in the Bering Sea (e.g., the Bering Ecosystem Study and Bering Sea Integrated Ecosystem Research Program - BEST/BSIERP, funded by the NSF and North Pacific Research Board), including research being conducted by the Center for Alaska Native Health Research (CANHR) on marine subsistence resources used by Alaskan Native communities.